Planning grant for Historically Black Colleges and Universities

With National Science Foundation support, Xavier University of Louisiana will implement institutional self-assessments and develop an action plan to strengthen the institution's undergraduate science, technology, engineering and mathematics (STEM) instructional and research infrastructure. The objective of the proposed effort is to better prepare STEM graduates for entry, successful careers and leadership positions in the STEM workforce.

Project activities include (1) evaluation and improvement of student recruitment strategies with the goal of increasing enrollment in SMET programs; (2) identification of current impediments to successful completion of STEM gate-keeping courses and development of strategies to increase completion, retention and graduation; (3) evaluation of STEM curricula to discover methods to better prepare students for success in the STEM workforce; and, (4) development of strategies to integrate research and education.